Prediction of Sorption and Diffusion in Zeolite Catalysts

This is an exploratory study of the phenomena of sorption and diffusion of hydrocarbons in pentasil zeolites. It is undertaken as a first step towards the development of reliable methods for the quantitative prediction of these phenomena from microscopic structure and chemical constitution. The systems methane/silicalite and butane/silicalite are investigated in depth, as test cases. Powerful computational techniques (evaluation of configurational integrals, molecular dynamics, grand canonical ensemble Monte Carlo) are employed to simulate these systems at an atomistic level, deduce equilibrium sorption isotherms and self-diffusion coefficients, and extend the fundamental understanding of underlying molecular mechanisms far beyond its present status. Theoretical predictions will be checked against available experimental evidence. In addition, an experimental effort will be initiated for the preparation of well characterized, large crystal silicalite samples and the direct measurement of sorption and diffusion by gravimetric techniques. The molecular simulation methods developed in this preliminary study are quite general. Once their predictive power is established in well defined test systems, their application to a wide variety of zeolites and sorbates will be straightforward. The long range objective of this research is to arrive at a self- consistent microscopic picture of sorption and diffusion, useful for the molecular engineering design of zeolite systems for separations and catalytic applications.